Molecular Level Effects for Simple Electrode Reactions at Well Defined Polarizable Electrodes

Professor Ronald Fawcett of the University of California Davis is supported by the Analytical and Surface Chemistry Program to characterize the electrical double layer at single crystal gold microelectrode surfaces. Both novel experiments and theoretical studies will be performed. Aqueous and nonaqueous solvents will be investigated. Kinetic experiments will also be conducted at single crystal electrodes modified by a self-assembled monolayer. Monte Carlo calculations will be carried out to determine ion/electrode correlation functions in the diffuse boundary layer.

This fundamental work underlies the understanding of electrochemical capacitors, synthesis, sensors, corrosion and the preparation of new materials.